MRI: Grant Proposal Writing Workshop for Historically Black/Minority Colleges and Universities; Hampton, Virginia; March 17-18, 1989 (Physics)

This award provides funding from the Minority Research Initiation Program to support a workshop on proposal writing for scientists from historically black colleges and universities. The workshop will be held at Hampton University on March 17 and 18, 1989. The representation of minorities in leadership positions in scientific research is a matter of concern to NSF. This workshop is an effort to facilitate and encourage the submission of research proposals by minority physicists.